Second International Conference on Heteroatom Chemistry, Albany, NY, July 16-21, 1989

The Synthetic Organic Chemistry Program is providing some of the funds to support travel of participants to an international conference-particularly for some of the junior participants (e.g.,Assistant Professors), to subsidize graduate students and post doctorates by permitting them to attend at a lower fee than more senior participants. This is The Second International Conference on Heteroatom Chemistry to be held July 16-21, 1989 on the campus of the State University of New York (SUNY) at Albany in Albany, NY. The purpose of this conference is to bring together in an international forum, academic and industrial researchers studying organic compounds containing such heteroatoms as Sb, Bi, B, F, P, Se, Si, S, Te, and Sn for such varied purposes as organic synthesis, and mechanistic and structure-theoretical investigations in order to promote a broader interdisciplinary exchange of knowledge than is possible at more specialized meetings. The topics to be emphasized at the Heteroatom Conference include heteroatom-directed organic synthesis, synthesis and reactions of chiral heteratomic compounds, heteroatom-containing enzyme inhibitors, theoretical-structural studies of heteroatomic systems, and uncommon bonding involving heteroatoms. The format of this conference provides 12 hour-long and 12 half-hour-long formal presentations by invited speakers, selected 15-minute talks, two poster sessions and several social events. The speakers and participants come from a variety of countries.